Graphics Enhancement Project

The Computer Science Department is revising its curriculum to conform to the Association of Computing Machinery guidelines. The project is strengthening the course content and hands-on experience of the computer graphics segment of the sophomore and senior curricula. Clusters of Sun Graphics workstations provide better preparation and learning of advanced graphics techniques. The project also has significant minority student involvement. This award is being matched by an equal sum from the grantee.